Studies in Charm Physics

The Rochester Group will be conducting research on BES-III in Beijing with the goals to study in open-charm production and to measure, with high precision through Dalitz analysis, phase information on the decays of neutral D mesons into Kshort pi pi final states with different tags for CP even and CP odd. This information can then be used by B factories and LHCb to determine the value of the CKM mixing angle gamma (or Phi3). Additional aspects of the program include the study of radiative decays of D mesons and searches for rare/forbidden decays, which are highly suppressed in the Standard Model, and if observed would be indicative of new physics. The Broader Impacts of the program included assisting with the Rochester PREP program, a summer program for high-school age women to promote further science interest in those who have yet to take high school physics.